Student Participation in the Southern Hemisphere Ornithological Congress, Brisbane, Australia, 27 June-2 July, 2000

0001323
Emslie

This award provides support for the travel of six graduate and undergraduate students to the Southern Hemisphere Ornithological Congress in Brisbane, Australia. The participants will come from four universities in the U.S. and include at least three women. The students will participate in a special symposium on the conservation and ecology of seabirds of the southern oceans. The topic is very timely and important. Long-lived seabirds such as albatrosses and petrels in these oceans have been impacted by human activities, such as long-line fishing, tourism, oil spills, introduction of non-indigenous disease, etc. The symposium will provide a unique educational opportunity for these students to learn from and interact with well-respected experts in the biology and ecology of seabirds. This symposium will also provide the students with first-hand knowledge of the importance of international collaborations in science and may lead to future collaborations.